Two-Photon Laser Scanning Microscope for Developmental/Cell Biologists

Two-photon excitation, using a red to infrared wavelength femtosecond laser, is a newly-developed technique that overcomes some of the problematic features of conventional confocal laser scanning microscopy. This is joint proposal by a group of 17 developmental and cell biologists at UCSD to acquire a two-photon laser scanning microscope (TPLSM) for monitoring the dynamics of cellular and subcellular events in living cells and organisms.